Support of the Committee on Atomic, Molecular, and Optical
Sciences

9724784
Morgan
This award supports the activities of the NRC Committee on Atomic, Molecular, and Optical Sciences (CAMOS). CAMOS monitors the health of atomic, molecular, and optical sciences in the US through meetings, presentations, reports, and special workshops.